Viscoplastic Compaction of Non-Spherical Particle Aggregates

0084902
Heyliger
The purpose of this research is to study and model the 2-D compaction of aggregates of non-spherical viscoplastic particles under external load. A numerical model will be used in which each particle is treated individually, with the appropriate constitutive relations, kinematic conditions, contact restraints, and elimination of overlap satisfied for every particle in the aggregate. The model will be used to study the effects of particle shape, size, distribution, orientation, and compaction history on the macro behavior of viscoplastic powders during and after compaction. The results are expected to provide new insight into the fundamental behavior of granular media, including overall aggregate stress-strain response, the formation and evolution of force chains, and the nature of yield surfaces for precompacted aggregates. The results will be useful in a wide variety of problems that can be represented using granular media, such as polymers, aluminum, food products, and others.